Atomic Many-Body Theory with Applications

The research centers on the development of next-generation high-precision methods of
many-body relativistic theory for univalent atoms. A new partial summation scheme to
all-orders of many-body perturbation theory will be implemented. This ab initio summation
scheme will improve accuracy and convergence of a recently derived and computed
1,648 fourth-order diagram calculation. Second, an incorporation of valence triple and
disconnected quadruple excitations into a hierarchy of coupled-cluster equations is proposed.
The development of many-body formalisms has a long-term goal of improving accuracy
of calculations of atomic parity-violating amplitudes. These amplitudes are important for
revealing possible new physics beyond the Standard Model of elementary particles.
Applications to the design of ultrastable optical clocks is also discussed.